Scholarships for Pre-engineers

Project Summary
This project is providing scholarships to 29 low-income, academically talented engineering students. There are student service programs available to the recipients that focus on retention, academic excellence, industrial or research experience and professional development. In addition, the scholars have access to career guidance and placement services.